Upgrading of the Seismology Research Computer Facility at the University of Arizona

9806229 Zandt This grant provides partial funding to upgrade the University of Arizona seismology research computer facility to accommodate increasing demands in network loads, mass storage requirements, and computational speed. In the past five years the computational needs in seismology at the University of Arizona have expanded greatly with our involvement in four major field experiments and the addition of a new faculty member in 1997. The upgraded facility will be used in the research programs of the seismology group that includes four faculty members (Beck, Johnson, Wallace, and Zandt), a computer systems administrator, and currently one postdoc and 12 graduate students. Each faculty member has at least one active NSF research grant, and are involved in research that spans a broad range of topics including the source properties of intermediate-depth and deep earthquakes, the earthquake cycle of large and great circum-Pacific earthquakes, the lithospheric structure and regional tectonics of the central Andes and Tibet, the crustal structure and seismic stratigraphy of terranes in the western U.S., and monitoring of the comprehensive test ban treaty. ***